Discrete Networks and Singular Phenomena in Heterogeneous Media

Novikov
DMS-0604600

The investigator studies thermal, elastic and other
effective properties of high-contrast two-phase particulate
composites where concentration of inclusions in the matrix is
high. He uses their fundamental property: the dominant
contribution to the rate of thermal dissipation, elastic energy
and other bulk properties comes from the areas between closely
spaced particles. This allows to develop Discrete Network
Approximations to effective properties of a composite. The main
goal of the project is to develop rigorous mathematical
foundations for these approximations. The investigator studies
the concept of a Perforated Composite as the key step in his
analysis. This concept allows to develop the discrete network
method into an effective and attractive tool for analysis and
applications. He applies this concept to determine effective
elastic properties of particulate composites, conductivity of
strongly nonlinear composites, and rate of viscous dissipation in
highly concentrated suspensions.

The investigator studies a class of heterogeneous media such
as ocean flows, oil-bearing sands, particle-reinforced and
fiber-reinforced composites, mud and blood among others. These
media are ubiquitous and characterization of their properties is
paramount for development of new technologies and materials.
Experimental studies of many such media are impossible or
prohibitively expensive. Computational studies of such media
often are beyond our current capabilities. The investigator
characterizes analytically these media as networks, which allows
developing reliable and effective reduced models amenable to
further analysis and numerical simulations. Such models help to
assess thermal and elastic properties of ceramics/polymer
composites, augmented transport of plasma proteins in blood, and
the spreading of pollutants in ocean.